National Center for Advanced Technological Education in Chemical Technology

Advanced Technological Education in Chemical Technology The American Chemical Society and the College of Applied Science, University of Cincinnati are developing a project to help provide chemistry-based technicians ChT with the education and skills required for successful high-level careers in laboratories and plants in chemistry-based industries throughout the United States. The mission calls for three goals: (1) development of human resources so that chemical technicians possess the skills and knowledge required for employment in laboratories and plants that require ChTs to the mutual benefit of employee and employer, (2) creation of a system that effectively supports local efforts that address local needs, and (3) provision of a forum for employer, academe and community awareness of the roles and functions of ChTs, and effective information exchange among all stakeholders. To achieve these goals the project is concentrating on three primary activity areas: (1) facilitating the development of networked alliances that nurture and support ChT education at the local level and sharing of ideas and experiences at the national level; (2) developing and evaluating curriculum and instructional materials for ChT education; and (3) enhancing two-year college and high school faculty members involved with ChT education.